CSUMS: Development of an Ongoing Program of Undergraduate Computational Mathematics Research

Sauer
DMS-0639300

Computational mathematics plays a critical role in the
infrastructure of modern science. To foster the development of
computational and mathematical science skills, in this CSUMS
project the investigator and his colleagues establish an ongoing
program of undergraduate research at George Mason University.
The program involves selected talented undergraduates in several
overlapping research opportunities that share a reliance on
computational mathematics. Undergraduate mathematics majors work
with established professors on timely problems of computational
mathematics with immediate applications in materials science,
astronomy, space weather, dynamical systems modeling, biophysics,
neuroscience, financial mathematics, statistics, and fluid
dynamics. The five co-investigators on the project, from the
Department of Mathematical Sciences and the Department of
Computational and Data Sciences, are joined by 20 other
professors with experience in mentoring high-school and
undergraduate students. Each CSUMS cohort works together in a
central knowledge core class, to rotate from year to year, and
shortly thereafter specializes to one of several particular
research projects related to the core. Students are supervised
by tenured/tenure track faculty and produce a poster and a
written thesis describing their research by the end of the year.

This project addresses the important need to inspire and
educate the next generation of computational scientists. Due to
the heavy reliance of contemporary science on computational
modeling, experts in computational mathematics will be necessary
for the advancement of science in the U.S. This project assists
in the creation of well-trained computational mathematicians by
involving today's mathematics majors in significant applied
research at the undergraduate level. Research experiences make
them more likely to succeed at the graduate level, in the
completion of advanced degrees in computational areas. The CSUMS
program at George Mason University exposes the student to
interesting, computationally accessible research problems in
critical competitiveness areas, including materials science,
computational fluid dynamics, financial mathematics, and several
other areas in the biological and physical sciences.
Additionally, the program educates students about the value of
computational skills while they are still formulating their
career directions. The project is supported by the MPS Division
of Mathematical Sciences, the MPS Office of Multidisciplinary
Activities, and the EHR Division of Undergraduate Education.